Ambient Near-Coastal Seismic Noise and Temporal Monitoring

The researchers will use the locations of secondary ocean microseisms noise to improve the
temporal resolution of changes in crustal velocity, and to map the locations of coastal
reflections of primary ocean waves. The proposed microseisms source location technique
is based on an algorithm developed for real-time earthquake locations and is suitable for
areas like Southern California where multiple simultaneous sources are located within a
few hundred km offshore and where there is a well distributed seismic array on land. The
use of source locations overcomes a problem with standard correlation methods that
require a random distribution of sources to achieve precise measurements, which
translates to long correlation times and hence a reduced temporal resolution. Using a set
of source locations, a shorter synthetic seismogram can be used in the correlation. The
coastal reflection points will be determined by forming an adjoint problem with the
hypothesized reflection source and an incident primary wavefield determined from high resolution
Wave Action Models (WAM's).

The source locations procedure is demonstrated with both a synthetic and real data
examples. The results show that there are often many source points active at any given
time. They provide two independent approaches: (1)
Synthetic Aperture Radar (SAR) measurements of the intensity of wave-wave
interactions at the source regions ? a necessary condition for microseisms generation. A
new airborne system that will be flown in June 2008 over the offshore S. California to
look for opposing ocean wavefields which are indicative of the source points. (2) A
comparison between the amplitudes of the observed micoseisms and estimated
amplitudes calculated using the source locations and the theory of ocean microseisms.

The nature of the
coastal reflections is currently poorly understood. This research will provide the
opportunity to develop a model for this process and to ultimately to generate a description
of the complete wave-field that can be incorporated into the next generation of Wave
Action Models. Microseisms provide a means to continuously monitor the Rayleigh
wave speed across the Los Angeles basins as a potential proxy for stress changes. The
use of sources in this procedure increases the temporal resolutions and removes the
problem of systematic bias due to the assumption of random source locations.

This research bridges three communities: radar interferometry,
oceanography and seismology and hence has the potential to spur research in all these
areas. Determining the mechanisms for coastal reflections will significantly enhance the
community wave action models. The application to southern California can be extended
to several other areas including northern California, Cascadia, and Japan. The procedure
established by this research could become part of the standard seismic monitoring of
Southern California